POWRE: Research and Curriculum Development in Commutative Algebra

The PI will use her POWRE award to spend a year at Rutgers University to collaborate with Prof. Wolmer V. Vasconcelos.

The PI will introduce computational methods in research projects on one--dimensional local rings and Rees algebras of modules. She will also develop research projects suitable for exploration by undergraduate students. This POWRE project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).